Collaborative Research: Innovative Resources: eRock - An open platform and community pipeline for digital outcrops

Fieldwork is foundational to geoscience education, yet many students face barriers to participating in traditional field courses. Digital models of rock outcrops can broaden access to field experiences while also supporting scientific research and collaboration. This project will develop an open digital platform that makes outcrop data easier to find, explore, analyze, and share. By improving access to digital field data, the project will strengthen geoscience research and help prepare the next generation of geoscientists with modern digital skills.

This project will develop the eRock cyberinfrastructure as an open, community-driven platform for digital outcrop data. The platform will combine a standards-based repository with persistent identifiers, structured metadata, and map-based discovery. Student-led data acquisition and curation, community workshops, and formal user evaluation will ensure that eRock is responsive to the needs of a range of users. The resulting platform will support FAIR (Findable, Accessible, Interoperable, and Reusable) data practices, enable reproducible research and teaching, and sustain the long-term value of digital outcrop data.